CAREER: Adapting Curriculum for Learning in Mathematics Education (ACCLIME): Processes and factors in teachers' evolving adaptations of curriculum materials

The ACCLIME project investigates teachers' uses and adaptations of CMP, an NSF-funded middle school curriculum. The project comprises three nested series of case studies involving school districts that are long-term CMP implementers and that have provided substantial and ongoing support, and 16 middle school mathematics teachers within these districts. The study seeks to better articulate: (1) the ways that teachers adapt CMP over time and how they develop professionally as a result of using the curriculum materials; (2) the connection between district policy, resource development, and teachers' curriculum processes; and (3) the dynamic nature of districts' long-term curriculum implementations.